Krypton Isotope Hydrology

0409756
Sturchio

The age of groundwater is one of the most elusive geologic parameters to quantify, despite its
crucial significance for water resources, waste management, subsurface reactive transport, and
paleoclimate studies. It has long been recognized that 81 Kr is a nearly ideal tracer for
determining residence times of old groundwater in the 5 10 4 10 6 year range, yet because of its
low abundance ( 81 Kr/Kr 10 -12 ) it has been nearly impossible to measure. However, a new
technique for measurement of 81 Kr/Kr ratios in small quantities of Kr (as little as 50 micromoles)
was recently reported (Atom-Trap Trace Analysis, or ATTA; Chen et al., 1999; Du et al., 2003),
and its application to old groundwater was demonstrated successfully by the PI and colleagues in
their NSF-funded study of the Nubian Aquifer, Egypt (Sturchio et al., 2003). That study
established the feasibility of using the ATTA technique for routine 81 Kr/Kr measurement in
hydrologic investigations of systems having long groundwater residence times. The ATTA
technique, which can also be used for measuring 85 Kr/Kr, is thus an ideal tool with which to
address a range of fundamental questions in hydrology.
This proposal requests support for a graduate student to work with the PI and colleagues
(Z. T. Lu's group at Argonne National Laboratory) in developing further applications of the trace
Kr isotopes ( 81 Kr and 85 Kr) in hydrologic investigations. The intellectal merit of this research is
that it will lead to an enhanced understanding of the water cycle within the Earth's crust.
Specific investigations that we propose are: (1) to determine the residence time of saline
groundwaters in the central U.S.A., which on the basis of stable isotope data are believed to have
traveled more than 1,000 km from a recharge area in the Rocky Mountains (Musgrove and
Banner, 1993), and which should therefore have a residence time on the order of 10 6 years; (2) to
constrain the residence time of hydrothermal waters at Yellowstone National Park, for which
little information is available (Pearson and Truesdell, 1978); (3) to determine the residence time
of groundwater in the Milk River aquifer of southern Alberta, which was the subject of an earlier
multi-tracer study sponsored by the IAEA that was focused on dating very old groundwater
(Ivanovich, Frohlich, and Hendry, 1991); and to investigate residence times of young (<50 yr)
groundwaters where other tracers such as tritium-helium and CFC's do not provide coherent
results. These investigations are representative of the broad range of potential applications of
trace Kr isotopes in groundwater hydrology.
The broader impact of the proposed research is that it will provide opportunities for
research, training, and education at the University of Illinois at Chicago (UIC), which has the
nation's fifth most diverse student population; it will establish enhanced local Chicago-area
partnership for routine application of trace Kr isotopes in hydrology, because the Kr separations
will henceforth be performed in a laboratory at UIC (rather than in Switzerland as in the previous
NSF-funded study) with ATTA measurements performed nearby at Argonne National
Laboratory; it will help establish the new subdiscipline of Kr isotope hydrology, which may have
significant impact on hydrologic investigations and water resources management worldwide.